Multivariable Calculus Using Mathematica

Computer technology is being exploited to produce a "leaner and livelier" multi-variable calculus curriculum supported by a collection of Mathematica Notebooks and graphics packages that provide material for classroom use as well as problems that invite students to explore further the concepts of calculus. A text will result that will assume that students have access to a powerful computing environment, but not necessarily Mathematica.